Synthesis of Iron Carbenes Relevant to Olefin Metathesis

Dr. Vlad M. Iluc of University of Notre Dame will generate iron complexes aimed to reduce the use of toxic metals like ruthenium in advanced manufacturing of products ranging from medicine to daily household objects. Although the use of ruthenium in the synthesis of many products is prevalent, its removal can be costly and difficult. This research will focus on developing iron-based compounds, a much more benign alternative to ruthenium and an earth-abundant metal, that ultimately can lead to safer end-user products. As part of this project, research group members will be involved in the mentoring of teenagers in chemistry at Bashor Children’s Home, a non-profit child welfare agency, in an effort to encourage them to pursue careers in the STEM workforce.

The chemistry of iron carbene complexes supported by diphosphine pincer ligands will be studied with the goal of developing iron-based olefin metathesis catalysts. Ruthenium carbenes, famously used in olefin metathesis, have impacted numerous research areas, ranging from synthesis to materials applications and biology. Such iron-based targets are of high interest because the use of a sustainable metal would lead to a decreased cost, toxicity, and environmental impact of the corresponding compounds. The electronic structure and reactivity of these tethered iron carbene complexes will be investigated and the results corroborated with computational studies. Mono-tethered and untethered carbene iron complexes will also be targeted based on these findings, thuis providing entry into various strategies that will allow for the synthesis of an iron-based catalyst.